Characterization of Arabidopsis Thaliana Shoot Meristem L1 Layer-specific Homeodomain Protein, ATML1, and its Role in Meristem Function and Pattern Formation

An emerging concept in plant developmental biology is that the genetic
control of patterned cell division is the key to understanding plant
development. Plants depend on controlled cell divisions in order to make
new organs throughout their life cycle. Organ development in flowering
plants results almost entirely from the patterned control of the number,
place and plane of cell division, in conjunction with regulated and
coordinated cellular expansion. The establishment of patterned control
occurs during several major phases of plant development, namely during
embryogenesis, shoot and root development, and during inflorescence and
floral morphogenesis. A novel homeobox gene, ATML1, in Arabidopsis
thaliana is expressed very early in plant development, being first detected
in the zygote, then segregated to the apical cell and later to the early
protoderm during asymmetric cell division. An atml1 mutant exhibits an
embryo-defective phenotype, with a loss of cellular patterning. Based on
its pattern of expression and its mutant phenotype, the ATML1 gene and its
protein product are likely to play a critical role in early embryogenesis,
specifically contributing to the control of pattern formation during
embryogenesis and possibly later during shoot development.
This project seeks to determine the function of ATML1 in embryogenesis and
SAM organization/function by characterizing the genetics and phenotype of
an atml1 mutant. The specific objectives are to use a combination of
classical and molecular genetic approaches to study the effect of the T-DNA
insertion in the atml1 mutant line. This research will provide critical
information for our understanding of the basis of cell division and early
pattern formation during embryogenesis, and the specification of the
identity of an L1 cell layer in the SAM. Localization of the ATML1 gene
products should also provide insight into current hypotheses concerning
protein trafficking and lineage versus positional information in the
determination of pattern in plants.